IEEE SECON Conference 2004: Student Travel Awards

Abstract

Student Travel Grant: The First IEEE SECON (Sensor and Ad-Hoc Communications and Networks) Conference
0441157
Krishna Sivalingam

The student travel grant will enable a variety of students to participate in the first IEEE SECON Conference on Sensor and Ad Hoc Communications and Networks. Participation of students will provide them (1) wider understanding of ongoing research and industrial projects, (2) opportunities for interactions with peer graduate students and meet leading researchers and (3) better understanding of the state-of-the-art in various sub-areas of the conference.